Hypergraph Methods For Variational Geometry

The objective of this research will be to develop a new graph- theory based technique to convert a variational geometry description to a constructional system. Preliminary research in two-dimensions has indicated the prospect of dramatically increasing the speed of variational geometry solution, and thus increasing the range of problems to which it may be applied. Successful implementation in a mechanical design package will greatly expand the utility of conceptual design software to the mechanical engineer.